Research in Koebe Uniformization and Circle Packings

9622068 He This project lies in the interface of complex analysis, topology and geometry. It deals with conformal geometry and circle domains in the plane. Conformal mappings of relative circle domains generalize mappings induced from circle packings of the same combinatorial pattern. The investigator will try to determine whether classical results for circle packing maps hold for these generalized mappings as well. In addition, the investigator will study the following problem in topological fluid mechanics: estimate the lower bound for the energy of incompressible vector fields which are subject to deformations under some ideal physical condition. The circle packing and circle mapping problems are classical problems touching on several different branches of mathematics. For example, recently it was discovered that three-dimensional hyperbolic geometry involving negative curvature plays an important role in circle pattern and packing problems. Also, certain extremal packing problems and their higher dimensional analogs - whose solutions can be approximated with computer simulation - may have applications in industrial packing problems.